COLLABORATIVE RESEARCH: Distributed Deformation Near the Mendocino Triple Junction

9418682 Bodin This project will study the active tectonics of the Mendocino triple junction in northern California. Many of the faults in this part of coastal California are poorly documented and understood, and this study will map them, conduct geodetic surveying, analyse the Quaternary deformation and analyse seismicity patterns. Results from the fieldwork will be incorporated into computer models that will test competing hypotheses about the tectonics of this region. The results will further our understanding of plate tectonic processes and earthquake hazards in actively deforming regions of the earth s crust.